U.S.-Germany Cooperative Research: Modeling of Conductivity Anistropy in the Human Head

This award supports Dr. Ceon Ramon and a graduate student from the University of Washington in a collaboration with Hannes Howak and Jens Haueisen of the Biomagnetics Center at the Friedrich Schiller University in Jena. The collaboration brings together the complementary capabilities of the German and U.S. groups to develop an anatomically realistic, very-high resolution computer model of the electrical and magnetic activities of the human head which accounts for differences in tissue conductivity in different directions. The model will then be used to investigate the electrical and magnetic activities of the brain under normal and diseased conditions. Such a model does not presently exist, and will lead to a better understanding of the electrical activity of the brain which will, in turn, lead to clinical applications.